Collaborative Research: CT-T: Towards a More Accountable Internet

Proposal Number: 0716342
PI: Scott Shenker
Institution: International Computer Science Institute, University of California Berkeley
Lead

Proposal Number: 0716278
PI: Nicholas Feamster
Institution: Georgia Institute of Technology
Sub

Proposal Number: 0716287
PI: David Andersen
Institution: Carnegie Mellon University
Sub

Proposal Number 0716273
PI: Hari Balakrishnan
Institution: Massachusetts Institute of Technology
Sub

Title: Collaborative Research CT-T: Towards a More Accountable Internet

Abstract

The goal of this project is to design, implement, and
test an internetwork architecture called the Accountable Internet
Protocol (AIP). AIP retains much of the elegance and simplicity of
IP, but is far better equipped to thwart malicious adversaries. To
provide this protection, AIP incorporates three kinds of
accountability: source accountability, control-plane accountability,
and dataplane accountability. Together, these three forms of
accountability ensure that any host, router, and autonomous network
can identify misbehaving components.

Operationally, this results in: an Internet in which any spoofing or
forgery of source addresses is detectable (from source
accountability); a partial defense against flooding attacks from
compromised hosts (also from source accountability); an Internet
where route hijacking and other security compromises to inter-domain
routing are impossible (from control-plane accountability); and the
ability for end hosts and operators to pinpoint locations where
packets are being lost or excessively delayed even when the problems
are in other networks (from data-plane accountability).

The cornerstone of AIP is its use of a self-certifying address
format. All AIP addresses are of the form AD:EID, where AD is the
identifier for the autonomous domain that the host belongs to, and
EID is a globally unique host identifier. Both address components are
derived from public keys held by the domain and host, respectively,
allowing other entities to verify the authenticity and provenance of
packets and messages. AIP's self-certifying addressing allows simple
protocols to realize the above benefits.